RIA: High Performance Disk Drive Channels

This research is examining techniques for reducing the hardware complexity for Decision Feedback Equalization (DFE) and Multi-level Decision Feedback Equalization (MDFE) in hard disk drives. Both digital and analog circuit approaches are being investigated. The first part of this work concerns the testing of a digital realization of DFE in an 0.8 mm process. The projected operating speed of this IC is about 100 MHz. Enhancements to the digital circuitry will give improved strategies for optimal phase detection, gain detection and dc offset detection. The second part of this work concerns the investigation of an analog implementation of MDFE. A simple architecture for MDFE, which includes both the phase and the gain detectors, is being studied for its robustness using actual playback waveforms. From this investigation, the circuits needed for the transversal filters comprising MDFE will be obtained. A mixture of switched-capacitor and current-mode circuit techniques will be examined.